Mathematical Sciences: Conference on Applied Model Theory

DMS 9625584 S. Lempp, U. Wisconsin at Madison This conference will take place on March 12-13, 1996, at the close of the annual Association for Symbolic Logic meeting. Its primary aim is to communicate recent developments in Model Theory to a wide range of logicians. The grant will be used for expenses for 9 speakers and 16 graduate students. The student support will be coordinated with funds available via the ASL.